Moisture Over Amazonia - A Contribution to the Global Tropospheric and Amazon Boundary Layer Experiments GTE/ABLE

The objective of this research is the evaluation of evaportranspiration over a region of the Amazon, the recent site of a joint field experiment to measure sources, sinks, and transport of several trace gases. Special geostationary satellite observations of the moisture distribution are available in addition to various meteorological observations (radiation, turbulent fluxes in the boundary layer) made at or near the earth's surface and in the forest canopy. The water budget - the source, sink, and transport of aggregate water substance - has never been adequately measured in the wet tropics; a knowledge of the water budget - the most variable meteorological quantity after radiation and cloudiness - will contribute to a better description of atmospheric circulation, including the release of latent heat, the hydrological balance of the Amazon River and the ecology of the vegetation. The forest cover is itself a major source of water vapor and, thus, if these trees are cut down and the land cleared, as in fact is taking place in several tropical regions, the proposed research could provide an informed analysis of some of the consequences, meteorological and otherwise.